2009 Business Execution Workshop

This one-day entrepreneurs education workshop on January 30th, 2009 is designed to educate and train NSF Grantees on how to build their businesses and transition their technology solutions into the commercial market. The workshop will focus on effective business execution. There will be a follow-up web-session in late February to re-enforce training topics.

The broader impact includes enhanced tool-sets for entreprenurial activity for a wide range of NSF SBIR Phase I grantees.